STC: Transformative Explorations in Multi-Physics and Engineering of Scientific Turbulence (TEMPEST)

The Science and Technology Center for Transformative Explorations in Multi-Physics and Engineering of Scientific Turbulence (STC TEMPEST) aims to dramatically advance our understanding and ability to control turbulence — the chaotic, multi-scale motion of fluids and plasmas — towards practical societal goals such as fusion energy development and numerous national security applications. The turbulent flows at the heart of these challenges involve magnetic fields, radiation, and complex multi-fluid boundaries interacting across enormous ranges of scale. STC TEMPEST, led by Michigan State University with partner universities, national laboratories, and industry, will unite artificial intelligence (AI) with theory and experiment to build a predictive science of this real-world turbulence. The Center will not only harness AI but advance it, creating new machine-learning methods that rigorously obey the laws of physics — trustworthy AI whose predictions can be relied upon for high-consequence applications. Success will accelerate American leadership in fusion energy, strengthen the scientific foundations of the Nation's security enterprise, and demonstrate how physics-grounded AI can transform discovery across science and engineering. The public will benefit through open data and software, museum exhibitions and immersive media, educational programs reaching more than ten thousand K-12 students annually, and the training of an AI-fluent scientific workforce.

STC TEMPEST addresses the triple closure problem of turbulence: three successive scale transitions — from many-body atomic dynamics to kinetic theory, from kinetic theory to hydrodynamics, and from resolved hydrodynamics to turbulent flow. Each of these requires closure models whose standard assumptions of ergodicity, isotropy, and near-equilibrium statistics fail in multi-physics, strongly driven, and boundary-dominated regimes. Three integrated research pillars attack this problem. An experimental pillar deploys co-designed platforms spanning the closure hierarchy: dusty plasma facilities resolving individual particle dynamics through the dissipation scale, fluid flow tunnels controlling scale separation, blast and volumetric-energy-deposition facilities, and campaigns at national user facilities to probe turbulent matter under extreme pressure conditions. A theory and modeling pillar develops nonlocal mathematical frameworks, structure-preserving numerical methods, and first-principles simulations bridging particle to collective scales. An AI pillar advances machine learning itself, creating architectures that encode conservation laws, symmetries, and geometric structure to extract closure models and interpretable dynamics from experimental and simulation data. The Center will create an open, standardized turbulence data library serving as an international benchmark resource, with knowledge transfer embedded through partnerships with national laboratories and fusion energy companies, and an education program spanning K-12 outreach, undergraduate computational and AI literacy, and cross-disciplinary graduate training.